Theoretical Condensed Matter Physics

9632294 Abrahams This grant continues DMR's long-standing support of this distinguished PI. The work proposed here falls in the general area of strongly correlated fermions (and bosons). The list of projects includes several highly complex problems of current interest in the community. Each of these projects involve close collaboration with experiments and also need significant breakthroughs in conceptual and mathematical development. The list includes: various aspects and consequences of Marginal Fermi liquid theory, consequences of odd-in-time magnetic correlations, large magnetoresistance in perovskite manganates and inelastic scattering in bosons and its effect on Bose-Einstein condensation. The research is expected to have impact on materials science, condensed matter physics and quantum chemistry. %%% This grant supports research in the general area of theory of novel materials with unusual magnetic or superconducting properties. Many of these materials need fundamentally new conceptual advances for a clear understanding of their properties. The examples are: new magnetic metals, heavy fermion materials (compounds based on Uranium and Cerium) and high Tc superconductors. ***